Novel Extreme Composite Materials due to Constituents of Negative Stiffness

Novel extreme composite materials due to constituents of negative stiffness

R. S. Lakes, R. W. Carpick, R. F. Cooper*, W. J. Drugan
Department of Engineering Physics and *Department of Materials Science
University of Wisconsin-Madison
Madison, WI 53706

The proposed research is directed toward the attainment of extreme
material properties by relaxing some of the assumptions commonly held about
constituent behavior in a composite material. A composite material
combines two or more constituent phases of different material properties to
achieve a new material with enhanced mechanical/transport properties.
Effective mechanical properties of composites are determined primarily by
the properties of the materials being combined, the interface behavior, and
the spatial arrangement of the phases in the composite. Traditionally, the
design variables associated with composites include (i) the choice of
constituent materials, (ii) the volume fraction of the constituents, and
(iii) the geometry of the phases.
Recently, one of the writers (Lakes) and co-workers showed that
several classes of composites can exhibit extreme behavior if one
constituent has negative stiffness. An analysis of the possibilities in
viscoelastic composite systems was reported in Physical Review Letters.
Peak damping and large stiffness anomalies are possible even with a dilute
concentration of inclusions, provided matrix damping is small. An
experimental illustration of the behavior of a lumped unit cell was
reported in Philosophical Magazine Letters. It disclosed singular
mechanical damping tan(delta) [where tan(delta) is the tangent of the phase
angle between stress and strain] in a system containing post-buckled tubes.
A further experimental illustration of extreme behavior in a particulate
composite was reported in Nature. Composites prepared with a dilute
concentration of ferroelastic inclusions exhibited large peaks in
tan(delta). The inclusions are more effective than diamond in increasing
the composite stiffness at selected temperatures. These results point to
the possibility of achieving extreme behavior in designed composites, and
exceeding conventional bounds based on the assumption of positive
constituent stiffness.
The goal of this research is to explore the effects of constituents
of negative stiffness in composite materials. We hypothesize on the basis
of some initial theoretical analyses and experiments that if one phase has
negative stiffness, the overall stiffness of the composite can be made
large. Moreover, we hypothesize that extreme mechanical damping effects can
occur if one phase has negative stiffness.
Multiple methods of achieving inclusion negative stiffness are to
be examined. Also, the question of stability of materials and composites
is to be examined in new theoretical developments. For a composite with
extremely high stiffness to be useful, it must be stable.
Composites with inclusions of negative stiffness are of scientific
interest in that current understanding of heterogeneous media is predicated
on an assumption of each phase to have positive stiffness. Our preliminary
theoretical and experimental results indicate extreme effects in stiffness
and damping when that assumption is relaxed, so we anticipate that the
present work will facilitate the development of new classes of materials
with extreme properties, even materials stiffer than diamond.